CISE Research Instrumentation

Two signal generators and a signal analyzer will be used in order to study wideband digital signal and information processing devices. The devices will be used in a computer controlled network testbed in order to replicate theoretical results indicating a possible 4 order of magnitude improvement in the ability to detect signals in the wideband signalling environment. %%% New hardware devices capable of transmitting data at high rates require conversions from analog signals to digital signals. Recent theoretical work by the PIs indicate that substantial improvements in signal detection in these environments is possible. The signal generators and analyzers are needed to experimentally validate the theoretical studies.